Collaborative Research: Active Extension in Canyonlands National Park, Utah

9980433 Crider
9980427 Owen

Extensional fault systems are a brittle response to regional extensional stresses and are influenced by many parameters that affect rates of movements, interactions between fault segments and evolution of secondary structures. This project is aimed at developing a detailed picture of the development of faults across an entire active normal-fault system, and will use the Canyonlands graben system in southeastern Utah as a natural laboratory. The work will use interferometric synthetic aperture radar and Global Positioning system techniques to describe vertical and horizontal displacements in this active system. Results should aid and advance understanding of the development of extensional fault systems.